Biochemistry of Luminescence

Bioluminescence is a highly diversified phenomenon involving a large energy change. The ultimate goal of this project is the complete biochemical understanding of bioluminescence and its roles in living organisms. To achieve this goal, it is essential to determine the chemical structures of key substances involved in various bioluminescence systems. Main aims in the next five years are as follows. (1) Fungal bioluminescence: Preliminary studies suggested that light is emitted when fugal luciferin reacts with 02- (superoxide anion) and 02 in the presence of a surfactant-like substance. The structure of the luciferin will be determined, and the mechanism of light-emitting reaction will be investigated from various angles. The luciferin might be useful as a 02 indicator. (2) Bioluminescence of euphausiids and dinoflagellates: Tetrapyrroles play key roles in both bioluminescence systems, but in different manners. In the euphausiid system, the fluorescent substance F (a tetrapyrrole) catalyzes the aerobic oxidation of a photoprotein. In the dinoflagellate system, luciferin (a tetrapyrrole) is oxidized into oxyluciferin in the presence of a luciferase. Despite the apparent difference, both systems may involve the same basic chemistry The reactions involved will be investigated to clarify the mechanisms of light emission. The oxidizable group of the euphausiid photoprotein will be determined.